Mathematical Sciences: Studies of Hydrodynamic Stabilities

In this project, the classical problem of laminar-turbulent transition in fluid dynamics is addressed from the perspective of stability theory. Recently D.J. Benney and the principal investigator developed a nonlinear stability theory which emphasizes mean flow/first harmonic interaction and the importance of the evolution of three-dimensional disturbances in shear flows. The principal investigator plans to develop this theory further for a number of applications. These include (1) the classical plane Couette flow which is linearly stable; (2) free stream disturbances and the problem of boundary layer receptivity; (3) compressible boundary layers; and (4) unbounded flows with inflectional profiles such as wakes and shear layers.